CISE Minority Institutions Infrastructure: Multidimensional and Multispectral Information Processing and Computational Aspects

9633519 Adjouadi, Malek Florida International University CISE Minority Institutions Infrastructure: Multidimensional and Multispectral Information Processing and Computational Aspects This grant provides support for graduate students to continue their research with a center serving a strong graduate minority population, the NSF funded Center for Advanced Technology and Education (NSF-CATE). The research areas include real-time applications of computer vision, neural networks, and mulitidimensional and multispectral signal analysis and modeling, all under a highly distributed and parallel platform. This support provides a strong basis for the development of visual/sensing techniques in a multi-dimensional and multispectral framework to address various dynamic and static phenomena viewed either through real-time confocal microscopy, flow cytometry, or a high-speed motion analyzer. Modeling of dynamic phenomena which integrate time with the three spatial dimensions; real-time image analysis and interpretation; application of the fundamentals of the wavelet theory; and implementations of the functional principles of the hypercolumn theory of the visual cortex constitute key research endeavors under this proposal. The important concepts of parallelism, data compression and high-speed data communication play a significant role in the aforementioned research goals. The existing NSF-CATE infrastructure and the support of this grant allows for a significant impact to be made not only in enhancing the theoretical foundation of the outlined research goals, but in carrying-out key applications with our industrial partners, especially in biomedical diagnostics. ***